Progressive Nitrogen Limitation in Terrestrial Ecosystems: Empirical Test of a Biogeochemical Paradigm

Carbon dioxide is released to the atmosphere when humans burn oil, coal,
and gasoline, and is the major cause of global warming. Increasing carbon
dioxide in the atmosphere may help plants take it up faster through the
process of photosynthesis. Will carbon uptake by forests help counteract
human emissions of carbon dioxide over the next century, and thereby help
mitigate climate change? Some models suggest that it might, but these
models assume that plants will be able to acquire enough nutrients from the
soil, an assumption that may well be faulty. This research project will
determine how rising carbon dioxide affects the cycling of nitrogen, the
nutrient whose short supply most frequently restricts plant growth.
Specifically, this research will determine whether the initial positive
responses of plants to increasing carbon dioxide eventually fade away
because the availability of nitrogen declines. This project will also
examine how increased atmospheric carbon dioxide may alter the cycles of
other elements, including the element molybdenum, which is known to be key
to the ability of ecosystems to accumulate limiting nitrogen. The findings
will be important for understanding how nitrogen cycling influences how
much carbon ecosystems might accumulate as carbon dioxide continues to
rise. The project will contribute to education and will specifically target
minority students for involvement in research. The project will develop
critical thinking exercises that build on the research results, designed
for use in undergraduate courses. Integration of research and education is
particularly important in ecosystem ecology and biogeochemistry, because
these fields of ecology are traditionally underrepresented in undergraduate
ecology courses, and because these fields have key implications for policy
decisions surrounding global climate change and carbon management.